1993 West Coast Regional Developmental Biology Conference

Partial support is requested to defray room and board costs for graduate students attending the 1993 West Coast Regional Developmental Biology Conference. The conference will be held on March 25-28 at the UCLA Conference Center at Lake Arrowhead, California. The program includes 24 speakers, who were chosen both for their scientific excellence and to provide a full mix of gender, race, and degree of professional advancement, as well as to provide information of interest in both animal and plant development. The topics to be addressed in the five formal sessions are: ı1! Asymmetric Cell Divisions in Differentiation, ı2! Control of Pattern Formation, ı3! Steroid Hormone Action on the Developing Nervous System, ı4! Influences of Bacteria on the Development of Higher Plants and Animals, and ı5! Determinants of Cell Fate. The conference will also include a keynote address to be given by Dr. Mark Konishi on the development of bird song, and all attendees will be encouraged to present their own work at a formal poster session.